SSC: The University of Toledo-PREP/TECH Program

SSC-9353277 University of Toledo Toledo, OH Cooks, Helen, Collins, Laurence, McDonald, Sharon and Natsoulas, Anthula "The University of Toledo-PREP/TECH Program" In the years 1993-35, a 5-week Prep/Tech Summer Institute Summer Science Camp (SSC) and Academic Year Program will be held at The University of Toledo and will be designed to; 1) afford fifty (50) 7-9 grade African- and Hispanic- American students academic enrichment opportunities in mathematics, science, and language arts and to; 2) challenge and develop critical thinking abilities through daily classroom exercises and laboratory projects which employ a hands-on approach to problem solving; 3) expose students to the laboratory environment through experiments that are designed to increase their awareness and understanding of scientific and technical methodologies; 4) familiarize students with computer usage; 5) Provide stipends for students whose socio-economic circumstances reflect a need for economic assistance to encourage full participation in the Prep/Tech program; 6) Assist selected students in their 9th grade transitional year with science and math studies though an Extended Pre /Tech curriculum; 7) Provide follow- up academic year activities; 8) Expose students to research methods using resources provided by The University of Toledo's Carlson Library, faculty, students, and campus, as well as community role models and parents. Members of civic and community organizations will also serve as role models, mentors and guest lecturers. Scientific Disciplines: Science, Mathematics, Engineering and Computer Science. Programs to Which Proposal is Submitted: Summer Science Camp. Instructional Grade Levels: Grades 7, 8, and 9.